Three-Dimensional Investigations of Seafloor Spreading in the Cayman Trough

This is a detailed magnetic study of seafloor spreading in the Cayman Trough, Caribbean Sea using high denisty aeromagnetic data and three dimensional magnetic inversion procedures. The trough offers a look at seafloor spreading and crustal accretion from three unique persepectives; as an indicator of relative motion sand tectonic desplacements within a complex plate boundary zone,as an example of accretion occurring under extreme thermal, tectonic and spreading conditions, and as an example of an isolated spreading cell whose development can be mapped from the time of its formaiton.